Research at CLEO-c and CESR-c

Wayne State University continues to focus its research effort on charm physics at the Cornell CESR storage ring. The group has participated in all recent CLEO experimental versions and continues to work extensively on CLEO physics analysis. The group has led the analysis of the rare Do decay D -> Ks , demonstrated a novel method of measuring the tracking efficiency of CLEO to very high precision with the data, and developed a novel method for observing beam-beam interactions and measuring beam parameters at e+e- colliders using beamstrahlung radiation. The group is currently focusing on the operation, maintenance and physics of CLEO-c. Work on the innovative beamstrahlung monitor continues, with an eye toward optimization of delivered luminosity at e+e- colliders. Wayne State runs a very successful outreach REU/RET program which promotes undergraduate and younger student interest in careers in science, technology, and engineering, especially among the underrepresented, and makes connections with K/12 teachers. Students and teachers make a significant contribution to the research effort, and the WSU group counts as current members two students who are alumni of the program.